NSF Minority Postdoctoral Research Fellows and Mentors Annual Meeting

This action funds a task order with MayaTech Corporation for conference support for the Minority Postdoctoral Research Fellows and Mentors annual meeting.